Geometry and Dynamics of Teichmuller Space

Abstract

Award: DMS-1007811
Principal Investigator: Kasra Rafi

These projects pursue two major themes. First, we can think of the
action of the mapping class group on Teichmueller space as an analogue
of the action of a lattice on a Lie group. This analogy is the
motivation of some of the proposed problems, namely the rigidity and
the counting problems. The other theme is to understand the relation
between different metrics on Teichmueller space. There are several
distinct metrics of interest on Teichmueller space and many questions
are answered for one metric but not for another. We propose the study
of the behavior of geodesics in the Lipschitz metric on Teichmueller
space, which has the feature that the Lipschitz metric can act as a
bridge between the Teichmueller metric and the Lipschitz metric in
Outer space, the model space for outer automorphisms of a free group.

The mathematical structures studied in this research program provide
coordinates that determine completely a family of two-dimensional
geometries. The oldest questions and constructions in these directions
are more than 150 years old but remain vital because of their central
role in mathematics and their use in analyzing shape-dependent features
of physical systems, including brain anatomy identified in MRI images.
One of the newer lines of investigation compensates for the longstanding
difficulty of imposing a truly satisfactory geometry or metric on
Teichmueller spaces by considering several geometries simultaneously,
aiming to take advantage of the good features of each. This project
aims to pursue this investigation to improve fundamental mathematical
understanding of these important spaces.